Design and Prototype Development of an Advanced, Modular Incoherent-Scatter Radar

The investigators will conduct a design study for a relocatable atmospheric observatory consisting of a high-power, phased-array, incoherent scatter radar. Current technology has allowed a significant change in the design of modern incoherent scatter radars and offers the possibility of a relocatable system. The use of distributed solid state power amplifiers enables designs that are modular, easy to upgrade as technology advances, and reconfigurable. The study will determine the best design approach, including an evaluation of tradeoffs in transportability, cost, and capabilities. The proposed work also includes construction of a prototype radar which will be assembled, operated, dismantled, reassembled, and operated again to test the relocatable aspects of the design. The results of the design study will provide the basic specifications of the final system and cost estimates for initial construction and relocation. Besides being the basis for a relocatable observatory, these new radar units may be the technology upon which all future incoherent scatter radars are based. The current U.S. incoherent scatter radars are all based on WWII technology, and the hardware and engineering expertise needed to maintain them are becoming harder to find. These new, low-power units could prove to be the wave of the future for these important atmospheric sciences facilities.